Novel C3 Symmetric Polypyrazole Ligands for Use in Enantioselective Transition-Metal-Mediated Transformations

The focus of this research will be design and preparation of C3 symmetric metal reagents using optically active pyrazoles containing stereogenic centers adjacent to the metal binding nitrogen to a central B, P, C, or N-centered fragment. Complexes of Cu(I), Rh(III) and Fe(II and III) will then be prepared and used to promote a variety of important enantioselective conversions including cyclopropanations, 1,4-additions to enones, hydrosilylations, oxidations and cycloadditions. %%% With this award, the Synthetic Organic Program is supporting the research of Dr. William B. Tolman, a young investigator in the Department of Chemistry at the University of Minnesota. Professor Tolman will focus his work on projects that center on understanding the effect of three-fold symmetry on metal-mediated asymmetric induction and on developing new stereospecific synthetic processes.